Collaboration in Computability

This project will facilitate collaborative work of faculty and graduate
students from ten U.S. institutions, three universities in Russia, and
one university in Kazakhstan. The research is in three rapidly
developing areas of computability: algorithmic randomness, computable
structure theory, and the comparative study of computability-theoretic
structures. The project has two broad goals. The first goal, more
rapid scientific progress, will be met by establishing a broad network
of collaborators, from all three countries, enabling them to pool their
ideas to solve fundamental problems. The second goal, providing
opportunities for students and young researchers to participate
actively in the world community of scientists, will be met in exactly
the same way.